CEDAR: Mesospheric Oscillations at Poker Flat, Alaska

This project will research the dependence of the spectrum of the mesosphere's temperature and density fluctuations on the horizontal scale size of disturbance. In addition, the PI will investigate longer-term and larger-scale phenomena, such as mesocools, tidal phenomena and secular changes. The PI will measure and analyze emission rates and derived rotational temperatures using a combination of optical instruments, with a new wide-aperture BOMEM Fourier Transform Interferometer. The information on wave activity gained from this study is important to wave-heating processes in the upper mesosphere.***